Development of Generic Models of Intelligent Learning Sensors

The objective of this project is basic research in the development of an intelligent learning sensor model. Intelligent control systems provide functions beyond conventional control systems, including learning and expert decision making. Each intelligent sensor, within a control system, will possess those aspects of intelligence appropriate to its function, and this intelligence will operate only on information available to the sensor. Intelligent sensors will be modeled as objects in an object oriented programming environment, where properties and functions of generic intelligent sensors are inherited by more specific sensor objects. The object oriented approach provides a means of isolating sensor specific code in the object representing that sensor and a knowledge base that can make the sensor self educated and self organized. The model of the intelligent sensor will be created, in first instance, as an empty structure where the various aspects that define the model will be filled as the work progresses. The research will specifically develop the aspect of learning as an essential functional characteristic of the intelligent sensor. Two other characteristics, interpretation and estimation, have been extensively researched and will be directly implemented as part of the model. Models of intelligent ultrasonic and temperature sensors will be created for experimental verification. //